CPS: Small: Collaborative Research: Foundations of Cyber-Physical Networks

CPS: Small: Collaborative Research: Foundations of Cyber-Physical Networks
The objective of this research is to investigate the foundations,
methodologies, algorithms and implementations of cyberphysical
networks in the context of medical applications. The approach is to
design, implement and study Carenet, a medical care network, by
investigating three critical issues in the design and construction
of cyberphysical networks: (1) rare event detection and
multidimensional analysis in cyberphysical data streams, (2)
reliable and trusted data analysis with cyberphysical networks,
including veracity analysis for object consolidation and redundancy
elimination, entity resolution and information integration, and
feedback interaction between cyber- and physical- networks, and (3)
spatiotemporal data analysis including spatiotemporal cluster
analysis, sequential pattern mining, and evolution of cyberphysical
networks.
Intellectual merit: This project focuses on several most pressing
issues in large-scale cyberphysical networks, and develops
foundations, principles, methods, and technologies of cyberphysical
networks. It will deepen our understanding of the foundations,
develop effective and scalable methods for mining such networks,
enrich our understanding of cyberphysical systems, and benefit many
mission-critical applications. The study will enrich the principles
and technologies of both cyberphysical systems and information
network mining.
Broader impacts: The project will integrate multiple disciplines,
including networked cyberphysical systems, data mining, and
information network technology, and advance these frontiers. It will
turn raw data into useful knowledge and facilitate strategically
important applications, including the analysis of patient networks,
combat networks, and traffic networks. Moreover, the project
systematically generates new knowledge and contains a comprehensive
education and training plan to promote diversity, publicity, and
outreach.